SBIR Phase II: A Student Centered Adaptive Learning Engine

This SBIR Phase II project represents a revolutionary advance in adaptive educational technology systems by using data collected from previous exercises to automatically generate hints and feedback for students. This work addresses the SBIR Educational Technologies and Applications subtopic EA5 - Learning and Assessment by making adaptive learning widely available and by providing tools to assess student performance in order to make interventions as early as possible and help students succeed. While it is well known that adaptive Computer Based Training (CBT) is more efficient and more effective, it has traditionally been cost prohibitive to produce in most domains. By leveraging the latest research in Big Data analytics and Educational Data Mining (EDM), this project will produce adaptive capabilities automatically, dramatically reducing the costs of producing more effective training and making such training widely available. The core customers for this technology will be providers of training systems. This includes publishing organizations, developers of software tools for education, and providers of corporate and government training. Institutions that are struggling to educate students, particularly across STEM (Science, Technology, Engineering, and Mathematics) fields, will be able to use this technology in their existing teaching systems and thus improve student engagement and performance.

The final outcome of this project will be an integrated set of software tools that collect data from existing computer/web based training software, and automatically generate adaptive capabilities to create a personalized learning environment for students. It does this by using novel EDM and machine learning techniques to build and organize student and problem models that improve over time as more data is collected. It also provides for the tracking of student progress on specific concepts or skills (knowledge tracing), allowing for easy assessment at any point in time. The system also dynamically selects the students' next problems to maximize student learning and minimize time needed to master a set of skills (problem selection). For complex multi-step problems, this system will provide context-specific, just-in-time hints to help students as they learn. The final product will include data adapters that allow developers of existing software to seamlessly connect with this system. Finally, a main differentiator of this system is the transparent process of data curation and the related visualization tools that expose the problem- and student-model generation process. This combination of human input and machine learning will provide researchers, developers, and educators tools to explore student data and allow for new insights into how students learn.